I/UCRC Diffusivity of Gases Through Aseptic Food Packaging Materials and Seals

This Research Opportunity Award funds a project "Diffusivity of Gases through Aseptic Food Packaging Materials and Seals" at North Carolina Agricultural and Technical State University in support of North Carolina State Univesity's Industry/University Cooperative Research Center for Aseptic Processing and Packaging. This two year project is reporting to the Center's Industry Advisory Board. The research is studying the effective diffusivity of gases through media used in the packaging and sealing of foods. The researchers are competent and have the facilities to perform the research. The Program Manager recommends North Carolina Agriculture and Technical State University be awarded $100,000 for two (2) years.